RI: Small: Modeling and Parsing Time Series for Causal Analysis with Application to Action Interpretation in Video of Natural and Man-made Environments

This project tackles the development of new tools for the semantic
analysis of temporal signals, in particular (but not restricted to)
video sequences. While most of the emphasis in video analysis so far has
been at the low-level, the investigators plan to explore the use of
Causal Analysis to perform inference and decisions to analyze video
signals. The challenge in this project is to bridge the gap between
basic descriptor at the signal level and Causal Calculus, that acts on
semantically meaningful representations. In particular, long-range
prediction, not just short-range continuous extrapolation, requires the
development of new tools that allow "interventions" into the model. How
would the state "X" evolve if event "Y" were to occur? To attain the
goals set forth in the proposal, the investigators must tackle
fundamental problems in the analysis of time series, both at the
low/mid-level (defining a proper notion of ``distance'' between time
series that respects their intrinsic dynamics), at the mid-level
(defining clustering schemes for action segments), and at the high-level
(develop action semantics in an abductive framework).

During this pilot one-year project, the investigators plan to explore the
feasibility of using causal analysis for performing long-range temporal
prediction of events and actions from visual data. Sample applications
that are impacted in case of success are broad ranging from
surveillance to environmental monitoring to driver assistance in
transportation, with significant societal impact in reducing traffic
accidents.